Oceanographic Instrumentation - 2002

0200976
Deering
This award to University of Delaware provides instrumentation to update and expand the oceanographic research capabilities of the research vessel Cape Henlopen, a ship operated by the University's College of Marine Studies as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. New water sampling bottles, Carousel sampler and serial data uplink systems will be used to enhance existing CTD (conductivity-temperature-depth) instrumentation. The new acoustic current profiler will provide optimum resolution for shallow operations, especially work in and around Chesapeake Bay. The new acoustic transponder system will provide improved capabilities for locating instruments on the bottom, either for detailed navigation or recovery if lost. These shared-use systems will be of substantial advantage to marine scientists using the ship in their research during 2002 and future years.
***